Library for Interactive Studies in Mathematics

James E. White DUE 9551273 U of NC Chapel Hill FY1995 $ 249,998 Chapel Hill, NC 27514 ILI - Leadership in Laboratory Development: Interdisciplinary Title: Library for Interactive Study of Mathematics This project addresses the problem of how to use the new information technologies, and in particular, the World Wide Web on the Internet, to make new tools available to teachers, to use those tools to enrich the quality of mathematics instruction at the undergraduate level, to more effectively reach larger sectors of the student population, and to expand pedagogy with new technology- supported styles of teaching and learning. The project addresses the need to make existing interactive materials easily available, to extend them, and to create new materials focused on the level and the abilities of the students users. The Library for Interactive Studies in Mathematics and Science, based at the Institute for Academic Technology of the University of North Carolina, Chapel Hill, is being built on the World Wide Web over a two year period. The library contains interactive workbooks on topics commonly encountered in undergraduate mathematics, from college algebra and pre-calculus through multivariate calculus, differential equations, and mathematical modeling. The library makes available to instructors all over the country a wide variety of interactive workbooks that they may freely use and distribute to their students. Workbooks, together with the program necessary to read them, are provided over the Internet instantly, and free of charge. The initial library holdings are 45 of the most effective experimental workbooks created for the MAA-sponsored Interactive Mathematics Text Project (funded by IBM and NSF, ILI-LLD grant USE-9150272). All needed information about the library is disseminated electronically via e-mail and discussion lists, as well as through presentations and workshops. The goal is to show teachers what can be done, to get them interested in experimenting, and to teach interested faculty how to build their own interactive workbooks. Faculty are invited to join an initial core group of 8 knowledgeable authors whose colleges are participating by piloting and testing materials. Materials are provided and a workshop is held to prepare 16 new teacher/authors. An integral part of the development process is feedback from an editorial board directed to the authors.